Agriculture Based Secondary Mathematics Project

Classroom ready materials on agriculture related mathematics will be developed by a team of authors consisting of eastern washington secondary teachers, Washington State University professors, and non-academic members of the agriculture industry. The materials will be designed to supplement existing secondary mathematics classes and will include student work pages, computer exercises, cooperative learning projects and a video tape informing students of the important role of mathematics in agriculture. Some material will be written to include parental involvement. The materials will be based on information gathered from practicing agriculture professionals in eastern Washington and will be piloted in six districts. Additional teachers will be trained to use the materials during a one-weak conference and through courses taught at the three branch campuses of Washington State University. A communicating network of 80- 100 teachers will result which will help address problems of isolation in rural districts.